EPWG: F.I.R.S.T. Female Involvement in Real Science Technology

9555807 Ash The Chabot Observatory & Science Center (COSC) will develop an environmental curriculum implementation project called FIRST: Female Involvement in Real Science and Technology. This comprehensive, sequential scientific initiative will be developed and produced in collaboration with local school districts, colleges, museums, and professional societies. FIRST will involve students in grades 5 through 8, and their teachers, administrators, care givers, and the families. The participants will explore critical environmental issues, envisioning themselves as effective shapers of their environment now and in the future. The program will reach 60 elementary schools and 15 junior high/middle schools, with over 35,000 students total, and 1,200 teachers will receive training each year. This project unites and builds upon the systemic reform begun by previous NSF-funded projects at Mills College and Department of Energy-funded collaborative education programs. Interactive environmental studies allow middle and high school students and their families to enrich their knowledge by discussing real life science questions. Teaching and learning in both formal and informal settings will help teachers, students, and community members of an urban multilingual, multicultural population explore environmental issues that effect their lives on a daily basis. ***